Antitermination of Transcription by Phage Lambda's N Mutational Analysis.

The long range objective is to characterize the molecular interactions among Nus proteins of E. coli and N protein of bacteriophage lambda and a phage-coded nucleic acid recognition site, the effect of which is to modify transcription with respect to its ability to pause and terminate. The "antitermination" consequence of lambdoid phage infection takes effect subsequent to transcription initiation, and is thus distinct from regulation of the initiation process. Now that the phage components for antitermination have been separated by DNA cloning, we are well positioned to investigate the molecular structure of those components and the means by which they interact, probably with the RNA transcript, to modify the readthrough behavior of E. coli's RNA polymerase. An "N-Tester Plasmid" transcribes from IPTG-inducible ptac to a terminator (t) that blocks expression of downstream reporter lacZ. In the presence of N lambda and host cell Nus proteins, lacZ expression becomes activated by the insertion of an N recognition "nut" sequence between ptac and t. The 5-base loop of the nut sequence, determining ability of N to antiterminate, will be mutated exhaustively to determine the base specificity at each position. A larger effort will be needed to understand the form of N protein, and the molecular basis for its specific interactions at nut and with the host Nus proteins. N mutations, located in a second plasmid compatible with N-Tester, will be tested in vivo for function and specificity. In the long range, physical studies will augment genetic analysis of N protein from lambda, and N-analog proteins from lambda-related phages, proteins that share the antitermination function but differ in specificity. The indication that N interacts with nut when it is in its RNA transcript form will be tested by "gel retardation" of nut RNA and DNA during electrophoresis on nondenaturing gels.